Regulation of Cellular Interactions by Extracellular Matrix Proteolysis

Lindsay 9723667 Following fertilization, the egg extracellular matrix is modified to prevent further sperm contact with the egg, thus maintaining the diploid state of the zygote. Using Xenopus laevis as a model system a block to polyspermy mechanism has been identified which involves the limited proteolysis of extracellular matrix (egg envelope) glycoproteins by proteases released from the activated egg. The known molecules involved are: 1) an envelope glycoprotein component which undergoes limited proteolysis at fertilization (gp69); 2) a chymotrypsin-like protease (ovochymase), which is localized to extracellular matrix fibers within the perivitelline space of the egg (the space between the plasma membrane and the overlying envelope); and 3) a trypsin-like protease released from the egg which activates ovochymase. In the last grant period, ovochymase and gp69 were cloned, the trypsin-like protease was purified, and it was revealed that ovochymase is not directly responsible for gp69 hydrolysis as originally hypothesized. Specific objectives for the proposed research are to: (1) Purify and characterize the egg protease directly responsible for gp69 hydrolysis; (2) Determine the role of ovochymase in the protease cascade; (3) Clone the trypsin-like protease for structure/function studies; (4) Immunolocalize the trypsin-like protease within the inactivated egg; and (5) Determine the function of gp69 hydrolysis in sperm binding and/or envelope hardening. The results of this study will provide an increased understanding of the regulation of sperm-egg interactions through proteolytic processing of the extracellular matrix, a mechanism which is fundamental to animal development.